Reasoning Language for Teaching Secondary Algebra

Decades of research have demonstrated that stronger mathematics classroom discourse, along with the use and connection of multiple mathematical representations, correlates positively with gains in student learning. This relationship is particularly salient in algebra, where diversifying the representations available to students can provide important supports for the development of conceptual understanding. The Reasoning Language for Teaching Secondary Algebra (ReLaTe-SA) project proposes to study the teaching and learning of algebra in grades 7-9, with a specific focus on the ways in which classroom language explicitly describes properties of and relationships among algebraic objects. The project seeks to investigate the bi-directional relationship between reasoning-rich algebraic discourse and the mathematical meanings students hold for core algebraic concepts such as equations, the equation-solving process, and functions. With a focus on the teacher, ReLaTe-SA will analyze classroom narratives about algebraic concepts and procedures and provide an 80-hour professional development program designed to support teachers in developing stronger explanations of algebraic objects, their properties, and their relationships.

The ReLaTe-SA project will investigate three aspects of teacher discourse practice related to algebra. First, the project will study the discourse and discourse routines that teachers use to explain algebraic objects, their properties, and their relationships. This will be accomplished through the development and deployment of an assessment called the Survey of Algebraic Language and Reasoning to identify teachers' discursive routines and narratives in the context of algebra. The instrument asks teachers to interpret student work and explanations by describing the student's mathematical reasoning and underlying mathematical understandings. Second, the project will support potential growth in teachers' algebraic discourse practices through an 80-hour professional development intervention focused on discourse in algebra. The impact of this intervention will be measured by changes to teachers' response patterns on the Survey of Algebraic Language and Reasoning, analyses of teachers' work within the professional development, and the analysis of classroom observations after the professional development has concluded. Third, the project will seek to understand the ways in which teachers develop lessons that explicitly focus on the development of students' algebraic reasoning and discourse. This goal will be realized through analyses of the tasks, plans, and implementations of mathematics lessons in participating teachers' classrooms. Three cohorts of 12 teachers each will be recruited for the project. Based on the results of this exploratory project, the team intends to follow up with a larger-scale study of the professional development and its impact on the teaching and learning of algebra.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.